IERI: Assessments to Support the Transition to Complex Learning in Science

This project will bring together knowledge and technology and refine them into an Assessment Design and Delivery System (ADDS) for science learning. ADDS provides both a set of tools and a testbed to investigate factors the impact implementation, effectiveness, and scale-up. Specifically, ADDS provides (1) utilities for individual teachers or teams of teachers to become designers and users of assessments that actionable information to guide their practice and student learning; (2) embeds content, assessment and pedagogical knowledge to assist teachers in both designing assessments and interpreting student progress; and (3) valid results for classroom-based inferences with the potential for aggregation of results for policy uses.